Workshop on Research Needs for Coping With Uncertainty in Power Systems, July 14-17, 1991, Norman, Oklahoma

This is a proposal for a workshop to identify the research needs for coping with uncertainty in power systems. Four areas of research are identified under this topic: uncertainty in future capacity needs, uncertainty in the regulatory environment, uncertainty in environmental effects, and uncertainty in power system modelling. This workshop will also be supported by the Edison Electric Institute.